New Methods for the Theory of Localization and Directed Wave Propagation

9804983 Mathur Disorder effects in dirty electronic systems are often essentially nonperturbative. Although some nonperturbative results are known, many important questions remain. This theoretical research will identify some of these unanswered questions and the associated methods to study them. The first part of the research will focus on the directed wave model. From one point of view it may be interpreted as a model of electrons moving in a noisy lattice (one with time dependent randomness). Efforts to statistically characterize the motion of a wave packet in such a medium have been made for over twenty years. Current efforts focus on a complete statistical characterization of the wave packet. Solutions to this problem are proposed in this research which exploit a mapping, discovered by the PI, of the appropriate Fokker-Planck equation onto an exotic ferromagnetic model. This model can be analyzed by adapting Dyson's beautuful analysis of spin-waves in an ordinary ferromagnet. A detailed solution is desirable because of the intrinsic interest in the directed wave model and its varied applications and because it is similar to several important models of noisy dynamics in statistical mechanics. The directed wave model also describes transport in a quantum Hall multilayer. A special version of the directed wave model coincides with a model that gives a very successful account of stress propagation in granular materials. Recent work on rare-earth metallic ferromagnets also provides motivation to study directed waves with correlated noise. Issues related to these systems will be studied. The second part of the research will focus on problems of static disorder. Here the questions to be studied include the statistics of the conductance in the mesoscopic limit, delocalization transitions in one-dimension, dirty quantum wires, and localization and delocalizations in higher dimensions. Many of these problems have long resisted attempts at analys is. The approach used will be to reinterpret one space dimension as time thereby transforming a model with static disorder to one with noise. %%% Disorder effects in dirty electronic systems are often essentially nonperturbative, e.g., not amenable to simple linear techniques. Although some nonperturbative results are known, many important questions remain. This theoretical research will identify some of these unanswered questions and the associated methods to study them. The research is comprised of two parts. In the first, the equations which model the propagation of an electron in a noisy medium will be transformed to an analogous model of magnetism. This model can then be solved in a relatively straightforward way. Applications to a variety of other physical systems will be studied. The second part of the research will study the motion of electrons in materials for which the disorder is static. Besides yielding a fundamental understanding of the underlying physics, the results of this research should also have applications in nanoelectronics. ***